Postdoctoral Research Fellowship in Plant Biology

This award funds a postdoctoral research fellowship in plant biology for two years. The project entitled "Genetic analysis of the developmental responses of Arabidopsis thaliana to mechanical stress" is to be carried out in the laboratory of Dr. Ronald W. Davis, Stanford University. This represents a significant change in the field for this Fellow who studied the molecular genetics of Yeast. During the tenure of this fellowship, her research will focus on the regulation of gene expression in response to environmental signals in Arabidopsis. The postdoctoral fellowships in plant biology are designed to increase the number of outstanding young investigators in plant biology.